Leveraging Data Communities to Advance Open Science

This workshop will advance scientific community readiness to share dataset metadata and create evidence-based practices to maximize the impact of that sharing. The workshop will do this by addressing the need for focused collaboration between scientists and information and technology professionals to understand, support, and promote the growth of “data communities,” formal or informal networks of scientists who voluntarily share and reuse a particular type of data.